Acquisition of Nanosecond to Sub-Picosecond Time Resolved Laser Instrumentation

This award from the Chemistry Research Instrumentation and Facilities Program (CRIF), the Major Research Instrumentation (MRI) Program and the Office of Multidisciplinary Activities (OMA) will assist the Department of Chemistry at the Massachusetts Institute of Technology acquire nanosecond to sub-picosecond time-resolved laser instrumentation. This equipment will enhance research spanning the disciplines of inorganic, organic, and material chemistry. A sub-picosecond laser can provide important information about chemical reactivity. Its use may enable breakthroughs in our understanding of the properties of reactive and nonreactive molecules.